Research Experience for Undergraduates-Physics

The University of Rochester's REU program in Physics enables sophomores and juniors nationwide to undertake summer research projects with members of the Department of Physics and Astronomy, and aims at 50% participation by women and underrepresented minorities. Students choose from the following experimental and theoretical research areas: particle and nuclear physics; quantum optics and lasers; astrophysics and infrared astronomy; condensed matter physics; biological and medical physics; plasma physics; and physics education. Students' research work is augmented by mini-courses in electronics and machining, weekly lunchtime discussions, excursions in the Rochester area, and opportunities to engage in the department's community outreach activities. Students prepare abstracts and presentations of their results, and are encouraged (and provided financial support) to present their work at national conferences, such as NCUR, meetings of the American Physical Society, and the Rochester Symposium for Physics Students.